Travel To Attend: International Symposium on External Prestressing in Bridges in Houston, Texas on Oct. 30 - Nov. 4, 1988

This project is a travel request to invite approximately ten European experts in the field of external prestressing of reinforced concrete girders to attend and present the state-of-the-art on the subject in their country. Proceedings will be published and distributed widely throughout the United States.